Earth System Science Initiative: Pulse of the Planet Radio and National Geographic Online

Jim Metzner Productions Inc, in collaboration with ETCOM and National Geographic, is requesting support for the production of "Pulse of the Planet/Pulso del Planeta" radio programs and an educational website that present current research questions, techniques, and findings in earth system science. The goal of the project is to introduce Earth as a dynamic, complex, global system and to convey basic concepts of systems and the elements of scale, change and interconnection on our planet. "Pulse of the Planet" reaches over one million listeners daily on over 300 public and commercial stations worldwide. The 300 new programs produced in English will be adapted and co-produced in Spanish by ETCOM for broadcast with its 106 radio affiliates. Each radio segment will be supported and extended on the National Geographic Online website with news commissioned to accompany the radio programs. The NGO feature will also include an audio program archive, links to NationalGeographic.com guides, related stories, photo galleries, maps and links for additional listener research. Learning Experience Design Research will conduct formative and summative evaluation services in English and Spanish.